Bi-Level Optimization for Hierarchical Machine Learning Problems: Models, Algorithms and Applications

Advances in optimization have become the cornerstone for the success of many
modern applications arising from fields like machine learning, signal processing and
control. However, as applications become increasingly complex, simply scaling up the
data and problem dimension is no longer sufficient to construct high-quality models. It is
also important to jointly model different kinds of hierarchically coupled sub-tasks
wherein the solution of one optimization problem builds upon that of others. Unlike
standard single-level optimization problems, algorithms tailored for solving hierarchically
coupled problems are less explored. Bi-level optimization (BLO) thus draws wide
attention across the aforementioned fields due to its power in modeling the complicated
hierarchical decision-making process.

In this proposal, we plan to study the BLO problems, and in particular, a subclass of it
with specific lower-level structures that is challenging and has strong applications in
modeling the hierarchical structures arising in modern machine learning and
engineering applications such as adversarial learning, inverse reinforcement learning,
and continue learning. Specifically, we propose to study the hard instances of BLO
where the lower level is nonconvex or constrained, which is much less explored and
inherently difficult. This proposal intends to develop a suite of new approaches that not
only advance the state-of-the-art BLO literature, but more importantly, can help
accelerate the adoption of BLO as a generic tool to model, analyze, and innovate on a
wide array of emerging ML applications. Further, we also plan to develop a
benchmarking suite that evaluates the state-of-the-art BLO algorithms on relevant ML
problems and beyond. This project will further integrate an educational plan with the
research goals by i) revamping the existing optimization and ML courses with BLO
components; ii) developing a new course project on applying BLO algorithms to ML
problems; iii) directly involving undergraduate and graduate students in research,
especially from under-represented groups; and iv) outreaching to the general public, in
particular K-12 students.